US-India Cooperative Research: Studies of the Vortex State vis-a-vis d-wave Superconductivity in Epitaxial Films of La2-xSrxCuO4

0242867
Greene

This award supports the US-India collaborative research project entitled Studies of the Vortex State vis-'a-vis d-wave Superconductivity in Epitaxial Films of La2-xSrxCuO4 (LSCO). US PI Richard Greene of the Center for Superconductivity Research (CSR), University of Maryland and Ramesh C. Budhani of the Indian Institute of Technology Kanpur (IITK) propose to study vortex dynamics and quasiparticle tunneling in the vortex state of LSCO epitaxial films. High quality and oriented epitaxial films of LSCO deposited with the technique of pulsed laser ablation will be used for measurements of vortex dynamics and tunneling. While vortex dynamics will be addressed at the IITK, measurements of tunneling will be undertaken at the University of Maryland. This research draws strengths from the state-of-the-art research facilities at each institution and decades of experience of the investigators in the field of superconductivity. The existing synergy between the two groups will facilitate realization of the stated research objectives.